Nuclear Spectroscopy with Large Detector Arrays and Electromagnetic Moments of Nuclei Under Extreme Conditions

Investigations of nuclear structure will be carried out by gamma ray spectroscopy with large detector arrays, conversion electron spectroscopy and by transient field and tilted-foil Beta NMR techniques. These studies will be conducted at several laboratories: LBL, Argonne, Yale, Florida State, Rochester, and Daresbury. The onset of collective motion in neutron-deficient polonium nuclei and the nature of the superdeformed excitations in mass A - 194 nuclei will be investigated. Electromagnetic moments will be measured in a wide range of light to heavy nuclei in order to study the interplay between single particle and collective excitations, and to probe the structure of exotic nuclei far-from-stability, or at high spin or excitation energy.